The Engelmann Scholar Research Program

The University of Missouri @ St. Louis will initiate a six-week, commuter, multidisciplinary Young Scholars project offering science enrichment activities for 24 precollege students entering grade 12. The Engelmann Student Research Program provides high-ability high school students with the opportunity to conduct research projects in mathematics and science under the supervision of a faculty mentor. Participants apply various problem-solving strategies to their independent projects, write technical reports and present the results in oral presentations. They are provided with formal instruction on technical communication skills. Career confabs and industrial field trips expose them to a wide variety of job possibilities. Eight follow-up meetings are held during the academic year to increase student career awareness and to help participants carry on independent research projects in their high school setting.